10th Topical Workshop on Proton-Antiproton Collider Physics

9505952 Raja This grant partially supports the latest, the tenth, in a series of international Workshops on Antiproton-Proton Collider Physics held in 1995 at the Fermi National Accelerator Laboratory. At the five-day-long series of sessions in May results presented and discussed are at the very frontiers, both experimental and theoretical, of particle physics. a heady mix of active scientists at various career levels provides a vital environment conducive to stimulating productive interactions among the participants. ***